Microrheology of Complex Fluids: From Colloids to Biomaterials

Project Summary
The increased demand for knowledge of small-scale behavior is making microrheology a key
step in the understanding of biological systems, the design and use of advanced materials,
and the novel applications of already existing materials. Most microrheological experiments
and analyses to date have focused on linear viscoelastic properties, by correlating the
random thermally-driven displacements of small tracers to the complex modulus through a
generalized Stokes-Einstein relation, a process which is relatively well understood but which
is limited in its scope to equilibrium systems. Many systems of practical interest are driven
out of equilibrium and display nonlinear behaviors, but the microrheology work in this
area has been scarce (conventional macroscale rheometers are used to measure both linear
and nonlinear regimes), and the connection between micro and macroscale measurements
is unclear. The need and interest in microscale measurements, whether due to the scarcity
of the material or the size of system, makes microrheology an important technology, but
unfortunately one which currently lacks fundamental understanding in many aspects.
The proposed research examines the relation between micro and macrorheology through
theoretical studies, with a particular and strong emphasis on the `active' (driven) and nonlinear regime.
This research is best described in terms of applications to colloidal dispersions, and will focus on such systems
because they offer very well-defined and well-characterized materials, allowing for comparisons
to macroscale measurements. However, the impact of this research extends beyond
colloidal systems as the theoretical foundation and general conclusions are extendable to
many complex materials, especially biomaterials. Specific issues such as shear thickening
in microrheology, the effect of the size ratio (tracer size to typical medium length scale) on
the `continuum approximation' and on microscale velocity fluctuations, and the interactions
between pairs of moving particles leading to structure formation are addressed. This is the first attempt to analyze the nonlinear behavior of materials within the context of microrheology
and provides a fundamental validation of microrheology as a sound technique, critical for
its continued application and future growth.
Broader Impact: In a broader context, this research will engage PhD students who will
become experts in colloidal physics and rheology, and who will go on to positions of leadership in industry and/or academia.
To aid in the education of future generations of scientists and engineers, a microrheology section for the undergraduate
chemical engineering laboratory at Caltech will be developed. To disseminate the research
as widely as possible, in addition to publication in conventional technical journals, a website
will be maintained with research results that are accessible to the general public. Since this
research provides the theoretical foundation for a new experimental technique that has
widespread application in science and technology, its impact is both very broad and deep.